Modular Transcriptional Coordination of Central Metabolism

Primary metabolism functions to provide the energy and building blocks for life and reproduction. Even with this central role, very little is known about how primary metabolism is regulated, especially at the level of gene expression. This project will employ a systematic approach to develop models of how this regulation occurs. A series of experimental strategies is expected to identify a set of key regulatory modules that are predicted to be central for the control of primary metabolism. Mutants of select transcription factors will be used to assess the phenotypic consequences using a high-throughput platform. Physiological, metabolomic and transcriptional effects will be monitored to assess module function. The combined data generated will enable further experimental studies to test whether regulatory modules of primary metabolism are structured around specific biochemical networks, or whether they are structured around physiological outputs such as increased growth or yield.

Intellectual Merit: Modern biology has a fundamental desire to understand how the genome of an organism programs its phenotype. However, this is greatly complicated by the need to move from the molecular to the macroscopic scale. It requires critical information of how transcriptional regulation and primary metabolism are interconnected and how regulatory modules connect at the molecular and physiological scales. Current biochemical and systems dogma says that gene regulation is structured around biosynthetic pathways; however this project will directly test an alternative hypothesis that modules have a more interconnected structure built around the physiological endpoints. Finally, this project will begin to develop a predictive model of how the genome governs the dynamics of primary metabolism.

Broader Impacts: A better understanding of how primary metabolism is regulated enables downstream manipulation of the process to engineer improvements in crop yield or quality. The project will provide interdisciplinary research opportunities for high school, undergraduate, and graduate students to prepare them for future careers in industry or academia. Established outreach programs will be used to recruit minority students from local high schools and colleges throughout the USA for summer internships. In addition, the principal investigators will be involved in teaching, both in a university classroom setting and in ongoing outreach efforts to educate community members about plant metabolism, quantitative genetics and ecology.